38th Maize Genetics Meeting will be held at Pheasant Run Conference Center from Thursday, March 14, through Sunday March 17, 1996

9600195 Chomet The 38th meeting of the Maize Genetics organization will be held at Pheasant Run Conference Center from Thursday, March 14 through Sunday March 17, 1996. This is a meeting which has been supported for most, if not all, of the years during which it has grown from a small group of dedicated scientists working with corn usually meeting in a university setting, to the large numbers of attendees which now must be accommodated in a conference center. Many scientists working with corn gave their first talk at this meeting which covers both basic and applied areas of the genetics, biochemistry, cell biology and biotechnology of maize research. Students at all levels are encouraged to go and encouraged to interact with the established attending scientists. ***